Improvement And Updating Of Organic/General Chemistry Laboratories - Acquisition of a FT-IR

9350743 Viswanathan The project will purchase an FT Infrared spectrophotometer to develop new directions in the chemistry curriculum. This will include the introduction of microscale laboratory techniques in the 1) organic chemistry, 2) general and introductory chemistry, and 3) special problems and research in chemistry courses for the freshmen and sophomore level students.The instrument with its built in computer will enable students to build libraries of spectra, identify impurities in the synthesized chemicals, perform baseline corrections, subtract solvent spectra and carry out computer searches in a relatively short time. This instrument will also be used in the faculty members' research in the areas of organometallic and natural products chemistry. ***